US-Eastern Europe Cooperative Research on Plant Ecology and Water Resource Management (Poland and Czechoslovakia)

This US-Czechoslovakia research project in wetland plant ecology and water resources management is between Dr. Michael S. Adams of the University of Wisconsin-Madison; Dr. Jan Kvet of the Botanical Institute, Czechoslovak Academy of Sciences at Trebon, Czechoslovakia; and Dr. Tadeusz Traczyk of the Institute of Ecology, Polish Academy of Sciences, Mikolajke, Poland. Research at these two sites will focus on the ecology of the wetland plant Lythrum salicaria, and will illuminate what factors allow Lythrum to be a successful invader of North American wetlands while remaining an early successional species in Europe. At Trebon, other efforts will address bioindication for potential contribution to formulation of new management practices that could better protect Czechoslovakia's water resources. This project in biotic systems fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool resources in areas of strong mutual interest and competence.